NSFNET Connection Proposal for St. Thomas University

9528352 Hopking St. Thomas University requests support from NSF for connection to Digital Business Systems (DBS). DBS, a midlevel network in the state of Florida, will provide operations management an information services and it will give the campus access to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The campus needs the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the St. Thomas University campus as well as the community in general.